Summer Science Camp (SSC)

The University of the District of Columbia program expands the existing Science and Engineering Center's pre-college program to include sixty seventh and eighth grade minority students in a summer academic intervention commuter program. Activities provide a non- traditional learning environment that allows for participant acquisition of knowledge from hands-on mathematics, computer science and electrical engineering instruction. Participants in this program will also participate subsequently in the Physical Science Institute, a science program for ninth through twelfth grade students.